Exploring Sophisticated Data Mining Analytics as a Strategy for Diagnostic Assessment of Rich Student Datastreams

This is a SGER for the development of analytic tools used for data mining in commercial applications (from SAS) to be applied to educational data. The tools will be tested on three sets of data: data streams from Multi-User Virtual Environments; data streams from Intelligent Tutoring Systems; and data streams from Educational Games. This SGER will investigate whether the data mining and analysis tools can help answer educational research questions about the effectiveness of these educational systems for whom and under what conditions. The intellectual merit of this research arises from the development of a set of analytic tools that can be used to answer research questions arising from learning technology systems. The broader impact lies in the development of an analytic infrastructure that can be used by other researchers working in the design and analysis of learning technology systems.